Molecular Visualization for Interactive Learning in Chemistry

Recognizing that today's student learns better from interactive systems than from textbooks and that introductory chemistry courses are generally viewed as `student unfriendly,` the department plans to provide all students in the core General Chemistry course access to computer-based interactive learning materials directly in their primary study area. This project is an integral part of the department's long-range plan to change the way General Chemistry is taught and to bring the traditional `computer laboratory` directly into students' dormitory rooms. The university is providing the necessary infrastructure, and this department has experience with networks and with the graphical molecular modeling necessary to drive this project. The objective is to provide interactive software that students can access outside the classroom. Students use molecular visualization as a means of understanding the three-dimensional nature of chemical structures and envisioning the dynamic nature of chemical reactions to complement their classroom and laboratory experience. Additionally, this project offers a solution to the nationwide problem of obsolete computer hardware and the high service demands placed upon chemistry faculty responsible for dedicated computer laboratories.